Studies in Theoretical Nuclear Physics

This is a program of research in forefront problems in theoretical nuclear physics relating to relativistic models of nuclear structure, soliton models of hadronic structure, effective relativistic Lagrangian methods in QCD and nuclear physics being carried out by two of the leading scientists in this field.